International Travel Award to attend VIII International Conference on Chemistry for Protection of the Environment, September 16-20, 1991, in Lublin, Poland

This is an award to provide a support for the investigator's participation in the Eighth International Conference on Chemistry for Protection of the Environment that will be held in Lublin, Poland from September 16-20, 1991. The investigator will chair a technical session, present an invited paper and participate in an International Roundtable discussion of issues addressed by the conference including pollution prevention, waste minimization, advanced physicochemical treatment of water and wastes, fate of chemical pollutants in the environment, and advances in tracking pollutant diffusion and dispersion in surface and groundwater under environmental stress.